CNPq: Service Differentiation, Efficiency, and Scalability in Distributed E-Commerce Servers

The focus of this proposal is the design and implementation of
cluster-based electronic commerce servers (or simply distributed
e-commerce servers) that are efficient, scalable, and capable of
service differentiation. To achieve these properties, our servers
will efficiently adapt their quality of service, will efficiently
handle any type of incoming request according to the client's profile,
will not involve any centralized resources, and will cache both static
and certain dynamic content. The key challenges are in determining
the set of policies and mechanisms that should be used to
differentiate the services provided and to implement truly efficient
and scalable policies and mechanisms for request processing. At the
end of the project, we will demonstrate two distributed e-commerce
servers (an on-line store and an auction server) running on a cluster
with 64 processors.

The contributions of this project will be the following: (1) A
complete and general characterization of e-commerce workloads; (2) An
understanding of the issues involved in service differentiation for
distributed e-commerce servers, including the use of optimizations
based on the past history of actions taken by high-priority clients;
(3) The design, implementation, and evaluation of mechanisms for
shared state maintenance and transaction support in distributed
e-commerce servers; and (4) The study of techniques and mechanisms for
improving the efficiency and scalability of distributed e-commerce
servers.

We believe that the potential implications of our research and
contributions are far reaching. In fact, we think that the impact of
our research can be substantial, given how significantly various
companies have come to rely on their on-line networking operations.
Furthermore, our research can be useful for operating systems and
distributed systems teaching purposes, as our software infrastructure
will provide a tool for the study of distributed e-commerce servers.